Event-Based Simulation Studies of Structural Relaxation in Amorphous Silicon and Silica Glass

9805848 Mousseau The PI will investigate amorphous materials, such as eSi:H and silica glass, using a MonteCarlo technique developed by the PI. The activation-relaxation technique (ART) was designed to overcome large energetic barriers that naturally occur in calculations of the structure and longtime dynamics of amorphous materials. Objectives of the research include: the identification of microscopic structural relaxation mechanisms in amorphous silicon and silica glass, the exploration of whether a wide range of amorphous structures can be obtained in simulations using ART, to classify the type of structural relaxation mechanisms that can take place in good quality networks of amorphous silicon, to identify (using this classification) candidates associated with the creation of defect centers responsible for the Staebler-Wronski effect in e Si:H, and to further develop the ART. %%% This research by a bright young investigator is aimed at a better understanding of amorphous materials, in particular silica glass and amorphous silicon doped with hydrogen. The arrangement of atoms of both of these materials is affected by illumination with light. The PI will investigate this effect using a promising new computational algorithm that he has developed. This new technique overcomes a central difficulty of more commonly used methods to study amorphous materials. The PI's research also involves further development of computational methods for calculating atomic arrangements and rearrangements in amorphous materials. ***